Experimental Video-Based Training for Electronic Networking

9313747 Garriott A grant is made to Volunteers In Technical Assistance (VITA) for an innovative, low-cost approach to producing introductory video training about the Internet. Students and staff of Barry University's Broadcast Communications will videotape tutorial and other selected sessions at the upcoming Workshop for Developing Countries which immediately precedes the INET 93 Conference (San Francisco, August, 1993). VITA will supervise the scripting and editing of up to eight instructional sets of video tapes, based on the workshop sessions. There is some risk that the non-interference restrictions placed on the taping process could impair the usefulness of the recordings. If the recordings are found acceptable for the intended instructional use, the tapes will be made available (for no more than copying and distribution costs) to the Internet community.